Computer Assisted Engineering in an Undergraduate Engineering Physics Program.

Two workstations will be added to the Engineering Physics program resulting in a three quarter sequence in computer aided engineering. The IBM PC/AT will be used to introduce the student to the ASSYST data acquisition and processing software, MICROCADAM mechanical design functions, and EE DESIGNER circuit simulation and design. A Motorola VME Module system will be used as a UNIX workstation to introduce finite element analysis via the CASA/GIFTS software. The result will be that the students are introduced to the workstation concept of engineering early in their course of instruction so that future courses can build on it.